Hands-on Chemistry: Enhancing Pre-College Science Education

The Institute for Chemical Education (ICE) will continue its diverse program of chemical education for teachers at the elementary, middle school and high school levels. This current two-year project describes the continual evolution of the ICE program, with some of the proven components continuing with non- NSF funding and current ones reflecting both the maturing of relatively new programs and changes in the perceived needs of the community of teachers. Continuing programs are (1) the Instrumentation Program at University of Arizona (UA) which includes a strong Outreach (Equipment Loan) Program, and (2) the Fellows Program at University of Wisconsin-Madison (UWI-M) whose Fellows will be embarking upon the task of assembling, editing and publishing the materials that have been produced as a result of the programs of the last six years. The first program involves 30 highly selected, well-prepared teachers from across the nation who will participate in a two-week long workshop preparing them to produce some simple instruments based on the study and use of more complex instrumentation which will be available to them for their own use. The loan program has been very successful in providing sophisticated equipment to schools which would ordinarily not have access to this level of instrumentation. The Fellows Program will select three chemical educators for a period of one year to begin and complete the massive task of making the accumulated materials, such as the ICE Guidebook for Chemical Activities, available for dissemination. New programs are (1) Science Activities for Elementary Schools (SAES) at UWI-M, University of Northern Colorado (UNC), and Miami University of Ohio (MU), an outgrowth of the Supplements Program which will provide opportunities for 60 elementary and middle school teachers (20 at each site) to spend two weeks on hands-on chemistry appropriate for those grade levels, (2) the Affiliates Program to be held in conjunction with the SAES programs, selecting 10 college or university chemists who are charged with replicating this program on their own campuses, and (3) Chemistry Fundamentals for Prehigh School Teachers which will select 40 prehigh school teachers in need of updating and enrichment in chemistry and chemical education methods of instruction and laboratory activities for an intensive four week workshop, to be held at UNC in year one and UNC as well as UWI-M in year two. This iteration of the ICE Programs will have teacher workshops at sites across the country with participants having an opportunity to select sites close to home. These sites are UWI-M, UNC, MU, and UA. Ongoing programs include the Fundamentals Program for High School Chemistry Teachers at University of California- Berkeley (UC-B) and Catholic University (CU), with an emphasis on minority participation of teachers from the Western region and the Greater Washington, D.C./Baltimore area, the Instrumentation Program at UC-B and the recently completed Laboratory Leadership Program at UC-B. The current project has cost-sharing from the Universities and school districts equivalent to 20% of the NSF request.